Innovative Experimental Stations for the Second Year PhysicsLaboratory

Whitman College's Department of Physics is upgrading its second year physics laboratories. In conjunction with recent revisions to the introductory laboratory and advanced laboratory, a series of seven intermediate-level experiments are being developed for the second-year that will continue the development of the student's experimental skills using appropriately more sophisticated data acquisition and analysis techniques.